Image and Marketing of Engineering Technology Education

This project is implementing the image and marketing recommendations from "A National Agenda for the Future of Engineering Technician Education" published January 1997 by Sinclair Community College. The goal is to create a strong, positive image of engineering technology education, to market that image to prospective students, and ultimately encourage more students to enter the profession. The objectives are to: (1) identify components of a strong, positive image of engineering technology education, (2) develop a comprehensive marketing plan to convey this image to prospective students (3) produce appropriate marketing materials to improve the nationwide image of engineering technology careers, and (4) disseminate products on a national basis.

In this project, Sinclair Community College is partnering with the American Society for Engineering Education/Engineering Technology Council, Middlesex County College, Motorola University (a division of the Motorola Corporation), the University of Central Florida, and the University of Dayton, Engineering Technology Department. Additional community colleges across the country are pilot testing and disseminating the materials produced.